Support of Attendance of U.S. Students at the First Annual Alfven Conference; Kiruna, Sweden; September, 1996

This award provides travel support for graduate students and recent post-graduates who live in the United States to attend the First Alfven Conference in Kiruna, Sweden, in September, 1996. The conference is titled "Low-altitude investigation of dayside magnetospheric boundary processes" and will address topics ranging from the solar wind input to optical auroral observations. The organizers of the meeting are encouraging the broadest possible attendence and have agreed to wiave conference costs and registration fees for young scientists.